IDP: Tools and Technology for Girls (TNT Girls): PreparingFemales to Succeed in Physics

Tools & Technology will involve middle school girls, teachers and parents in hands-on physics activities. The program includes a one week summer residential experience, monthly activities throughout the school year and a culminating TNT Girls Expo at the Science Museum of Minnesota. Dissemination activities will include publications and presentations, networking with parallel programs for teachers and families and a training session for museum staff.